Lima Technical College: A Link to the Global

9504747 Moots This project connects Lima Technical College to the Internet over a T1 (1.544 thousand bit per second) line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.